Structure-Function Studies of DEAD-Box RNA Chaperones

David McKay
MCB-98-74528

1. Technical

The "DEAD-box" RNA helicase domain is a conserved ~400 residue protein
module that has an essential role in a broad spectrum of activities in RNA
metabolism, including ribosome assembly, initiation of polypeptide
translation, mRNA splicing, RNA degradation, and others. The helicase
domain is thought to facilitate rearrangments of specific RNA structures in
precisely controlled, ATP-dependent reactions. Different representatives of
the DEAD-box domain family function as individual "stand alone" proteins,
as subdomains in the context of larger, multidomain polypeptides up to
~1300 residues in length, and also as subunits of multiprotein complexes.
The overall goal of this study is to determine the structures and RNA
binding specificities of DEAD-box proteins. First, the x-ray
crystallographic structure of a representative DEAD-box protein, the
elongation factor eIF4a from yeast. will be solved. This will provide a
prototype structure of the helicase module. Incorporating the structure
into the design of subsequent experiments, (i) several eubacterial
DEAD-box proteins which differ significantly in biological function will
be expressed and purified, and (ii) their RNA binding specificities will be
determined using in vitro selection methods. Using the consensus RNA target
sequences that emerge from the selection experiments, defined RNA
oligonucleotides will be synthesized and their interaction with their cognate
DEAD-box proteins will be measured directly. Additionally,
crystallization of RNA-protein complexes will be attempted with the goal of
solving their structure.

2. Non-technical

RNA metabolism is a required function for cell viability. A diverse set of
proteins participate in activities such as splicing and degradation of
messenger RNA, initiation of polypeptide translation through specific
interactions with messenger RNA, and assembly of the RNA-protein
complexes in the ribosome. Although each of these activities utilizes a
unique set of proteins, they share a common "RNA chaperone" function
that is carried out by a highly conserved RNA helicase domain. This
domain, which is about 400 amino acids in size, must carry out a
biochemical activity that is essential to the entire spectrum of the
biological activities in which these proteins participate. The goal of
this work is to understand the participation of this protein module in the
biochemical mechanisms of RNA metabolism. The method for accomplishing
this will be to first solve the three-dimensional structure of this RNA
chaperone domain, and then to determine the basis of its specificity in
different biological functions. The first goal will be accomplished using
the technique of x-ray crystallography, and the second will use both in
vitro selection techniques to determine specific RNA sequences to which the
proteins bind, and crystallography to solve the structures of protein-RNA
complexes.